An Improved Three-Layer Pavement Model and Granular MaterialCharacterization

The objective of this project is to develop an analytical method to predict the actual pavement response to the imposed loads. With this information it will be possible to evaluate the material properties from dynamic in-situ deflection tests, and, thereby, determine the durability and condition of the pavement.